Structure and Function of Vitamin B6 Containing Enzymes

9317373 Ringe The overall aim of this project is to use protein crystallography and site-directed mutagenesis to understand how the structural features of an enzyme active site can control the chemistry of a bound cofactor. Pyridoxal phosphate (PLP) requiring enzymes are numerous and important in biochemistry, and catalyze a multitude of different chemical reactions, including racemizations, transaminations, beta-eliminations, and decarboxylations. In each case, the same cofactor is used, and the initial step in the reaction is the same: formation of an imine adduct between an amino group of the substrate and the aldehydic carbon atom of PLP. When this adduct forms in free solution, many different reactions can occur simultaneously, leading to a mixture of products. When the adduct forms on the enzyme, a unique product is produced depending on the specific enzyme. The enzyme modulates and directs the chemistry of the cofactor. To understand how this happens five different PLP-dependent enzymes have been selected for study, catalyzing different reactions. The overall objectives for each are to crystallize the enzyme and determine the three-dimensional structures of the enzyme itself and complexed with inhibitors in order to suggest specific roles for active site residues in controlling cofactor chemistry. These hypotheses will be tested by site-directed mutagenesis and crystal structures of the mutant proteins. %%% Many enzymes use organic cofactors as partners to assist in the catalysis of chemical reactions. Although enzymes-bound cofactors still carry out the same transformations as when they are in solution, the specificity of the reaction is much greater on the protein surface. An understanding of how environment controls chemistry is the central aim in all studies of homogeneous and heterogeneous catalysis. Enzymes requiring cofactors offer the ideal system for the unraveling of these principles. The enzymes chosen for this study catalyze diffe rent and increasingly complex reactions, although they can all use similar amino acids. Therefore, comparison of the data from this series of enzymes will provide a wealth of information about the effect of protein environment on cofactor chemistry. ***